Seventh International Machine Learning Conference

This award supports the Seventh International Conference on Machine Learning. This meeting will fostyer communication among researchers in this rapidly growing area. The conference will be hosted by the University of Texas at Austin and will be held from June 21 through June 23, 1990. The meeting will contribute significantly to progress in this important area.